Dissertation Research: Molecular Systematics of Cornus L. sensu lato and Putative Relatives

The taxonomic circumscription and relationships among members of Cornaceae dogwoods have long been controversial. From one to 15 genera have been ascribed to this family by various authors. Furthermore, little agreement exists regarding the composition, taxonomic rank, and relationships of subgroups within Cornus. To resolve relationships at several taxonomic levels in this enigmatic group, nucleotide sequences of both chloroplast and nuclear genes will be obtained. Comparative sequencing of the chloroplast gene rbcL, which evolves slowly, will be used to test traditional concepts of circumscription of Cornaceae and to identify close relatives of Cornus. The rbcL sequence data obtained to date reveal that Cornus and 11 other genera form a cornaceous clade that differs from all previously proposed cornaceous groups and also indicate that some genera traditionally placed in Cornaceae are only distantly related to Cornus. To understand better the closest relatives of Cornus, rbcL sequence data are needed for additional key genera. Within the cornaceous clade, comparative sequencing of the chloroplast gene ORFK, which evolves three times faster that rbcL, will be used to elucidate relationships among Cornus and its close allies. Within Cornus, our analysis of chloroplast DNA restriction site data has already yielded a phylogenetic hypothesis based on 24 species. Comparative sequencing of the internal transcribed spacer regions (ITS-1 and ITS-2) of the nuclear ribosomal RNA genes (rnDNA) will facilitate a direct comparison of the concordance of nuclear and chloroplast DNA phylogenies with Cornus. In addition to elucidating relationships within a notoriously problematic group, this study will be of broad systematic importance because it represents one of the first attempts to employ chloroplast genes other that rbcL in phylogenetic reconstruction and compare nuclear and cytoplasmically based phylogenies. Lastly, the evolution of certain morphological, cytological, phytochemical, phytochemical, and embryological characters will also be examined in light of the molecular phylogenies obtained.